Industry/University Cooperative Research Project: Buffered Solvent Delignification of Biomass

The purpose of the research is to characterize and further develop the fundamental relationships between reaction conditions and the physical properties of the corresponding products obtained using a buffered ethanol-water process. The process has several desirable features: high pulp yields, minimum carbohydrate degradation, pristine lingnin, and low pollution demands. Specific objectives of the project are: (1) to expand the scope of preliminary delignification studies in order to obtain a better understanding of the delignification kinetics, and (2) to identify relationships between reaction conditions and the ensuing physical and chemical properties of the pulp and lignin.